CIF: Medium: Collaborative Research: Advances in the Theory and Practice of Low-Rank Matrix Recovery and Modeling

This project concerns one of the fundamental challenges facing
contemporary science and engineering today, namely, the efficient
processing and analysis of massive amounts of high-dimensional data,
such as images, videos, web pages, and bioinformatics data. In short,
data now routinely lie in thousands or even billions of dimensions. On
the one hand, massive data collection is motivated by 1) scientific
discovery and 2) the need for better engineering systems. On the other
hand, the difficult task now is to conduct meaningful inference in
such high dimensions, and draw correct conclusions from limited
amounts of sample data and with limited computational
resources. Fortunately, scientific or engineering data often have very
low intrinsic complexity and dimensionality. This project addresses
the opportunities offered by this common situation, establishes
conditions under which reliable inference is actually possible, and
develops computational tools for extracting key information from huge
data sets.

This interdisciplinary project is expected to have three outcomes: 1)
the development of innovative mathematics needed to study the recovery
of data matrices from partial and corrupted information 2) the
development of effective algorithms for recovering low-rank matrices
and performing accurate dimensionality reduction with corrupted data
and 3) the development of novel applications in which these techniques
are expected to considerably advance the state-of-the-art. With these
new tools, scientists and engineers will be able to efficiently
extract correct information from data, which was previously
inaccessible or intractable by conventional techniques. This will
enable the development of far better computer vision systems for face
recognition, better compression schemes of video sequences, a better
understanding of gene expression data, or better search engines for
web documents and images.